US- France Cooperative Research: Systematics of Late Cretaceous (Maestrichtian) Land Mammals in Bolivia

This award will support collaborative research between Dr. Larry G. Marshall Institute of Human Origins, Berkeley, California and Dr. Christian de Muizon of the Institute of Paleontology, National Museum of Natural History, Paris, France. Drs. Marshall and de Muizon have worked together successfully in the past in the collection of mammals and other vertebrates from the Late Cretaceous age El Molino Formation in Bolivia. The investigators now propose to prepare two monographs on some the most important species in the oldest mammalian faunas of South America. Monograph 1 will be on specimens of Alcidedorbignya inopinata--the _______________ _________ earliest, smallest, and most generalized member of the order Pantodonta known. Monograph 2 will be on specimens (including complete skulls and nearly complete associated skeletons) of the didelphid marsupial Pucadelphys andinus. A. inopinata is the most ___________ _______ _ _________ abundant placental, and P. andinus is the most abundant marsupial _ _______ in the Tiupampa fauna. Preparation of both monographs will involve: 1) assessment of dental variation within each species; 2) assessment of possible sexual dimorphism within each species; 3) detailed descriptions of all dental, skull, and postcranial elements; 4) comparative descriptions and assessment of phyogenetic affinity with other taxa; 5) assess functional aspects of the skeletons of Pucadelphys; 6) make photographs for study and ___________ publication; and 7) discuss the evolutionary and biogeographic importance of each species. The results of this work should be of great interest to scholars of mammalian evolution.